CAREER: Direct Patterning of Thin Films for Flat Panel Display Manufacture

9733247 King Research is proposed to develop a novel lithography technique, one which would not only lower process cost but also enable a complete shift in the FPD manufacturing paradigm and thereby contribute to efforts to lower production costs for large-area electronics products in general. Specifically, this technique will allow thin films to be patterned directly, without the need for an intermediary photoresist mask or hard mask. It employs a high-fluence projection lithography tool to selectively expose the substrate through a mask. The direct Patterning of a silicon film has already been successfully demonstrated in an initial study. Further work is proposed to develop direct-patterning processes for silicon, dielectric, and metal films, and to demonstrate these processes in the fabrication of polycrystalline-silicon thin-film transistors (TFTs). The new technique should have a distinct throughput advantage over established ablation techniques, as well as improved cleanliness (fewer particulates) or lower associated mask costs. ***